Learning and Intelligent Systems: Simulating Tutors with Natural Dialog and Pedagogical Strategies

This project is being funded through the Learning and Intelligent Systems (LIS) Initiative. The long-term practical objective of the research is to develop a fully automated computer tutor. The tutor would be able to (a) extract meaning from the contributions that the student types into a keyboard and (b) formulate dialog contributions with pedagogical value and conversational appropriateness. The tutor's discourse moves include: pumping, prompting, hinting, questioning, answering, summarizing, splicing in correct information, providing immediate feedback, and rewording student contributions. The dialog contributions of the tutor would be in different formats and media: printed text, synthesized speech, simulated facial movements, graphic displays, and animation. Such an achievement will require an interdisciplinary integration of theory and empirical research from the fields of cognitive psychology, discourse processing, computational linguistics, artificial intelligence, human-computer interaction, and education. The tutoring topics will be in the domains of computer literacy and introductory medicine. Previous attempts to develop a fully automated tutor have been seriously challenged by some technical and theoretical barriers. These include (a) the problem of interpreting natural language when it is not well-formed semantically and grammatically, (b) the problem of world knowledge being immense, open-ended and incomplete, and (c) the lack of research on human tutorial dialog. Recent advances have dramatically reduced these barriers, so it is time to revisit the mission of developing an automated tutor. According to the recent research on human tutoring, a key feature of effective tutoring lies in generating discourse contributions that assist learners in actively constructing explanations, elaborations, and mental models of the material. The proposed research will advance scientific understanding of how a tutor can manage a smooth, polite dialog that promotes deep learning of the material.